The Effects of Stochastic Rainfall Clustering on Radar Measurements

Jameson/Abstract ATM-9712075 The objectives of this research are: 1. to investigate how patchiness and clustering alters radar measurement statistics. 2. to investigate how patchiness and clustering alters our concept of drop size distributions and radar Z-R relations and 3. to investigate how patchiness and clustering alters aspects of scattering particularly with respect to multiple scatter The primary approach will be numerical experiments and Monte Carlo simulations although observations will be included as well, when available. The objectives of these experiments are: (a) to develop further our understanding of the effects of the variance of parameters generated by patchiness and clustering on measurement statistics by considering correlated samples and by considering different radar parameters such as polarization radar variables (b) to investigate how the variability of drop size distributions within a radar beam effects Z-R relations such as those used by the NEXRAD radars and (3) to explore the effects of clustering on multiple scatter and backscattered microwaves as functions of the variance of the number of drops per unit volume, the mean separation distances, and drop sizes.